Geometry of Moduli Spaces

A fundamental problem in algebraic geometry is the study of the
nature of the moduli space M(g) of curves of genus g as an
algebraic variety. It is known that for low g this space behaves
very much like a projective space which means that one can
describe explicitly most curves of given genus. However for g
large the nature of M(g) changes completely and the investigator
studies this transition by constructing new loci in the moduli
space, which are of a completely different nature than those
studied by previous mathematicians. The geometry of these new
loci strongly suggests that the transition in the nature of
M(g) appears much earlier than the leading conjecture in the
field has predicted. The technical machinery developed by the
investigator to solve this problem is also employed to study
some open problems about vector bundles on general curves of
genus g. A different project concerns the moduli space of
pointed curves of genus 0. Obects of striking beauty, these
spaces are important because of their pivotal role in new
developments in enumerative geometry and because often
statements about curves of arbitrary genus can be reduced to
questions about pointed curves of genus 0. The investigator
studies several invariants of these spaces and the proposed
approach has been succesful in low dimensional cases.

Algebraic curves are ubiquitous objects in mathematics. They
appear in complex analysis (as Riemann surfaces), in algebra
(as field extensions) and in algebraic geometry (as curves in
projective spaces). The most important problem in algebraic
geometry is to classify algebraic varieties. For one-dimensional
varieties (that is, for algebraic curves) this problem is
approached by considering the moduli space M(g) of all curves of
given genus. This is the universal parameter space for curves of
fixed genus and interest in its geometry comes from fields as
diverse as algebraic geometry, theoretical physics, number theory
or coding theory. By understanding this space not only can we
learn about families of curves but quite often the moduli space
itself has beautiful geometric and arithmetic properties which
one cannot expect to find on an arbitrary space.